Computer Aided Surface Representation

The focus of this research is the creation of new surface forms and the determination of geometric and physical properties of surface. The full sweep from constructive mathematics through algorithmic implementation in conjunction with interactive computer graphics display of surfaces will be utilized. Both three-dimensional and multi-dimensional surfaces will be considered. The research activity performed by Barnhill and others will involve the study of "surface" problems, where a "surface" is defined to be a function of two or more variables. The study of graphics and visualization is of considerable importance to a variety of users in the science and engineering community. Encouragement of such activity is increasingly important as the computational technology becomes more powerful and available.